III/SGER: Hypothesis Based Query and Verification of Pathway Models

Advancing knowledge in the biological sciences involves
experimentally testing hypothesesand interpreting the
results based on prior scientific work. Researchers face
the challenge of collecting, evaluating and integrating
large amounts of different kinds of information about
organisms, cells, genes and proteins to generate a valid
hypothesis. And once a hypothesis is generated, the challenge
is to evaluate the hypothesis with respect to what
is already known.

Our proposed research will:

1. Test the scalability and extensibility of a novel
computer system that allows biologists to construct
and evaluate alternative hypotheses against a knowledge
base on the yeast Saccharomyces cerevisiae.

2. Test a knowledge archive that supports the archiving
and search of validated hypotheses.

In our work, we define a hypothesis as a statement about
relationships between components of a biological system
that are intended to explain experimental observations.
A set of validated hypotheses can be used as building blocks
to construct larger, more complex models such as
pathways. We plan to develop and test a new paradigm:
that of hypothesis-driven querying of model organism knowledgebases.

The proposed work, called HyQue (for Hypothesis-based Querying
of pathway models), will take as input working hypotheses about
pathway models expressed in a knowledge-based formalism,
evaluate their consistency using existing data in a knowledgebase,
and provide as output contradictory evidence and suggestions for
improving hypotheses. HyQue will incorporate formal knowledge
representations based upon Semantic Web standards and
an ontology to represent biological objects and relationships.
HyQue will also contain a library of rules that determine
counts of support and contradiction for a given hypothesis.

We will prototype an archive of hypotheses that allows users
to compare their hypothesis with other hypotheses submitted by
their peers. We will explore the capability to:

(1) express working hypotheses about the yeast cell cycle;
(2) provide integration of data in the Saccharomyces Genome
Database to evaluate/test pathway-specific hypotheses;
and
(3) archive these results.

As analytical tools and database resources proliferate,
biologists require facilities to integrate existing data
into knowledge that can create a shared understanding of
biological models. Our work will explore the expressivity
and scalability of unique and novel querying and contradiction based
reasoning methods that use rich formal knowledge specifications of
biological events in order to accomplish information integration.
Our proposed work will lead to a novel paradigm of querying
biological knowledge that can dynamically retrieve, integrate and
interpret information in terms of biologically relevant
relationships asserted as pathway models. Our work will
examine the value of Semantic Web technologies in building
a knowledgebase for such querying and reasoning and will
aid in standardizing models of biological knowledge and
add momentum to a range of ongoing ontology building efforts.

Further information on the project can be found at the
project web page: http://nigam.web.stanford.edu/hyque